Some Problems in Algebraic and Geometric Topology

This proposal concerns the application of Algebraic Topology to the
classification of high dimensional manifolds. The PI and collaborators have
recently shown that every finite loop space is homotopy equivalent to a
compact, smooth manifold, solving a 40 year old problem posed by Browder,
motivating Surgery Theory. This still leaves open the question whether all
finite H-spaces have this property.
The conjectures of Borel, Novikov, Baum-Connes and Farrell-Jones assert that
the assembly maps in K- and L-theory are either monomorphisms or
isomorphisms. All these assembly maps can be expressed in terms of controlled
algebra, an area the PIU intends to continue working on, to obtain results
for larger classes of groups.

A manifold is a geometrical object which locally is like euclidean space, but
may be curved globally such as a sphere. These spaces arise both in
mathematics and in Physics. Manifolds have been studied by topologists for
over a hundred years as they hold the key to understanding the nature of
space. The PI proposes to extend vurrent algebraic classification methods to
achieve a deeper geometric understanding. Of particular significance is
controlled algebraic methods, which capture the essence of both algebra and
topology